Sunspot Seismology with GONG Data

Braun, Douglas 95-21637 Dr. Braun will study Sunspot Seismology, the only known way to explore subsurface magnetic fields of the sun. He will determine the way that acoustic (p-mode) waves, trapped in the solar interior, interact with sunspots. He will use GONG data to determine the complete p-mode scattering properties of a wide variety of solar active regions. The goal is to identify signatures of the subsurface presence and evolution of magnetic regions in the p-mode scattering amplitudes and incorporate these into the scattering models currently available. Thus the GONG data will be used to infer the physical considerations within and beneath the surface active regions and possibly find p-mode scattering signatures that may be used to predict such things as the emergence of magnetic fields.